Phylogeny of the Euglenoid Flagellates

Protista is a complex assemblage of organisms, many of which are only distantly related. Euglenophyta is clearly phylogenetically distinct from the remaining protists; however, the ingroup phylogeny of the division is only poorly understood. Previous studies have focussed on cellular detail determined by electron microscopic investigation of aspects of the flagellar apparatus and cell division. The PI intends to combine details of ultrastructural (from the literture and this study) with molecular sequence data from the 18s-like rRNA. The PI will use parsimony analysis to infer the phylogeny of this group, and based on that phylogeny, to revise the classification system of the division. Findings may have relevance to our understanding of higher organisms.